Conference: Plant Cell Biology International (PCBI) in the age of AI

There is a strong need to develop a knowledge base that will enable rational design of improved crop species and biomanufacturing. Achieving this goal requires a better understanding of how plant cells integrate metabolism, cytoskeletal organization, and vesicle trafficking during growth and in response to environmental challenges. The focus of this meeting is unique and seeks to promote the use of artificial intelligence (AI) for interpretation of high-resolution imaging and automated image analysis and quantification. This year’s meeting features useful workshops on AI applications to image analysis. Keynote speakers will be recognized world experts in applications of machine learning and AI to cell biology data. All participants will network, have the opportunity to present posters, and many early career scientists will have opportunities for oral presentations.

Plant cell biologists share common challenges in understanding the mechanisms underlying organelle and cell dynamics. AI transforms cell biology through advances in protein structure prediction, cellular modeling, and quantitative image analysis, yet its adoption in plant cell biology remains limited and fragmented. The second Plant Cell Biology International (PCBI) meeting will highlight effective ways to combine quantitative imaging, biochemistry, and computational tools to gain a mechanistic understanding of plant cellular systems. The meeting will provide training for faculty, postdoctoral researchers, graduate students, and undergraduates in quantitative cell biology and AI-enabled analytical approaches while fostering data sharing and interdisciplinary collaboration. PCBI builds on partnerships between the Midwest Plant Cell Dynamics (PCD) community and the European Network for Plant Endomembrane Research (ENPER), providing a forum to exchange ideas and establish collaborations.
Overall, the PCBI meeting will 1) promote the awareness of AI tools in plant cell biology, 2) strengthen collaborations between U.S. and Europe-based laboratories, 3) provide opportunities for researchers at all career stages to present and discuss their latest findings and 4) promote the development of tools that will accelerate mechanistic analyses of cell dynamics towards biotechnology and biomanufacturing.